First Caribbean Spring School Block Travel; Gainsville, Florida; May 30 - June 13, 1993

A School of Mathematics and Theoretical Physics will be held on Guadeloupe May 30 to June 13, 1993. The school will present to students at or near the Ph.D. level discussions of recent progress in such fields of mathematical physics as non- commutative geometry, quantum groups, integrable systems, and the foundations of quantum field theory. These fields represent an exciting interplay between mathematics and physics which is potentially very useful to both. The lecturers include a number of excellent practitioners of these fields.